CEDAR-TIMED: Joint Observations and Studies of the Effects of Geomagnetic Storms

ATM0000958abs

The investigators will study geomagnetic storm influences on the lower thermosphere using a coordinated set of ground-based and TIMED satellite observations in the 100 to 150 km altitude region. The ground-based observations of neutral winds and temperatures are planned at key upper atmosphere facilities. The study will be based on a special alert system that will enable all the incoherent scatter radars and associated instrumentation to operate during geomagnetic storm intervals. Selection of data sets from the TIMED satellite during magnetic storms will provide the required data base to investigate storm effects. Inclusion of general circulation and electrodynamic modeling efforts will enhance the overall understanding of the structure and dynamics of the lower thermosphere on a global scale.